Noncommutative geometry, microlocal analysis, index theorems and symplectic geometry

Abstract

Award: DMS-0906391
Principal Investigator: Boris Tsygan

This project is devoted to studying microlocal methods in index
theory and in symplectic geometry. A part of the project deals
with noncommutative differential calculus which is one of the
central tools in the above. By noncommutative differential
calculus we mean the study of algebraic structures arising from
the standard differential calculus on manifolds, defined in terms
in such a way that is valid of the algebra of functions on a
manifold and in such a way that is valid if this algebra is
replaced by any algebra, commutative or not. This leads to the
study of algebraic structures on Hochschild chain and cochain
complexes of an algebra; those complexes play the role of
differential forms and multivector fields, a development of works
of Dolgushev-Tamarkin-Tsygan, Kontsevich-Soibelman, Costello,
Lurie and other authors. The techniques of noncommutative
calculus will be applied to obtain new index theorems and
theorems about the determinant of the cohomology of elliptic
systems, generalizing recent results of Beilinson. Also, the
project will study a new object on a symplectic manifold that we
call an oscillatory module. These objects are modules over
deformed algebras of functions on a manifold, but with extra
structures that make their category much closer to the Fukaya
category. This extra structure is largely motivated by microlocal
methods in partial differential equations, in particular the WKB
method. This is a part of a series of works that try to
understand mirror symmetry microlocally (Bressler-Soibelman,
Kapustin-Witten, Nadler-Zaslow, Gukov-Witten, Tamarkin).

There are three related parts in the project: noncommutative
calculus, index theory, and oscillatory modules. Noncommutative
calculus is a theory that describes parts of the standard
differential calculus in such a way that it can be applied in
situations more general than that of an ordinary space, in
particular when, for coordinates on our imaginary "space", the
equation xy=yx is no longer required. Index theory is a part of
the theory of differential equations that expresses the number of
solutions of an equation in terms of the topology of the
underlying space. Oscillatory modules are objects on geometric
spaces that describe the motion of quantum particles on these
spaces (in other words, they treat the space in question as the
phase space of a quantum mechanical system). These objects are
intended to be applied to study other invariants of these spaces,
also physically motivated and much more complicated; they are
called A-branes and describe the motion of a quantum string on
our space. They are called A-branes and are subject of much
current research in mathematical physics and geometry. Let us
finish by explaining why noncommutative calculus is natural for
applications both in differential equations and in quantum
mechanics. Indeed,if x and y are basic operations with
functions, for example multiplication by some function and
differentiation, then xy differs from yx, in the sense that, if
you apply them in different orders, you get different
results. Similarly, in quantum mechanics, if x is the position of
a particle and y is its momentum, then xy differs from yx; this
is a mathematical expression of the Heisenberg uncertainty
principle.